MTD: Midwest Theory Day: April and December 1994-1995

9421704 Sarrafzadeh This award supports the continuing series of Midwest Theory Days. For the past few years researchers in theoretically oriented fields of computer science have met two times a year in the Midwest United States. At the meetings, attendance have ranged from 60 to 80, representing 15 institutions. These meetings bring Midwest researchers together to discuss latest results in theoretical aspects of computer science and in the transfer of rigorous methodologies to applied fields. Students (mostly graduate) at all Midwest institutions benefit from Midwest Theory Day by getting exposed to advances in theoretical studies. Approximately 30 to 40 graduate students attend each meeting. ***